Curation of the SCIAA Human Skeletal Collection

The South Carolina Institute of Archaeology and Anthropology at the University of South Carolina holds the only collection of human osteological remains in the state. Unfortunately, these materials have never been adequately processed and preserved so that they are unavailable for research. During this project, staff will clean and repair materials, catalogue and document each skeletal remain, and reshelve according to modern standards of collections management. Although small, this collection has integrity due to its regional nature and temporal span. The collection is also important because skeletal materials in the southeast are generally in poor condition due to the extremely wet soil. With upgrading, this collection will allow researchers to learn about the adaptations of native american, anglo-american, and black groups in the region. These materials will increase our understanding of the cultural history of the southeast.